Stressed Stream Analysis: Addressing Real Environmental Problems to Stimulate Undergraduate Science Faculty and Students

The Center for Applied Aquatic Science and Aquaculture will conduct a 3-week summer project for 20 undergraduate faculty that demonstrates environmental problem-solving as an effective teaching strategy to stimulate undergraduates' interest in environmental science. Using the theme of Stressed Stream Analysis, participating faculty will learn NEPA-based environmental analysis concepts and techniques and will work in teams to prepare an Environmental Impact Statement for a proposed pollution source in a disturbed stream ecosystem. Concepts and skills participants will learn include: Habitat Evaluation Procedures, using Biotic Indices, electrophoretic and microscopic techniques to evaluate pollutant effects on organisms, and water quality analysis of nutrients and metals in a stressed stream ecosystem.